CAREER: Interface and Reliability Studies of MEMS and Microelectronics Using New MEMS Instruments

9734368 Saif This proposal is focused on experimentally studying one of the commonly occurring failure modes in MEMS and micro electronics, namely debonding between interfaces, often referred to as decohesion. The interface formed by submicron films of a metal (aluminum) and an insulator (silicon dioxide) will be studied. To carry out the experiments, micro instruments will be developed based on MEMS devices. These instruments will initiate debonding in test specimens designed for interfacial studies.They will also self calibrate, and will allow measurements of Angstrom to nanometer scale displacements of the specimens. The micro instrument and the test specimens will be simultaneously designed, patterned and cofabricated. ***